YSP: "Gallaudet Summer Science Program"

9552883 Meisegeier Gallaudet University will initiate a 4-week, summer residential, Young Scholars project in the fields of biology, chemistry, and physics which will offer science enrichment activities for 15 students entering grades 9, 10, 11. The summer program is for deaf students conducted in a research oriented environment. Students will be provided opportunities to participate in classroom instructions, field trips, hands-on laboratory activities, and research under the leadership and guidance of university professors.